Center for Cosmological Physics

The Center for Cosmological Physics brings together astronomers and
physicists, experimentalists and theorists, to address the most
fundamental questions in modern cosmology. It establishes an
interdisciplinary environment essential to address the cross-disciplinary
problems, thereby fostering an ideal climate for nurturing new talent
(students and postdocs) and stimulating faculty and other senior
scientists to think in different directions. Measurements of the remnants
of the early universe will be performed by Center scientists; this data
will be interpreted by them and center theorists to reconstruct the
conditions and laws in effect at the earliest moments of the Universe.

Experiments in Cosmology over the past decade have revealed phenomena
which are simply not understandable in our "Standard Models." Thus they
constitute important clues to the deepest secrets of nature. These
include the fact that most of the matter in the Universe is "dark" and
appears to only interact gravitationally; that most of the energy in the
Universe is of a mysterious form whose dynamics is totally unknown; that
points on the sky which have apparently never been in contact with each
other have the same temperature to very high precision; and that there
are particles striking the Earth with energies well beyond what we can
understand. The Center exploits the interrelations among these phenomena
and will address them with new experiments and new insights.